Organic Chemistry: Effect of Solvents on Organic Reactivity and Selectivity - New Synthetic Methodology

The Organic Synthesis Program is funding the continuation of the research program of Dr. Paul A. Grieco. Dr. Grieco will continue his studies of the influence of the solvent on the course of reactions to develop new modes of controlling reactivity. This will lead to the production of sensitive new methods for producing the complex substances needed by our agriculture and industry. The major thrust of this research is: (1) to probe further the heterocycloreversion of 2-azanorbornenes, (2) to develop a heterocycloreversion process for N-oxides derived from N-substituted 2-azanorbornenes for use in intermolecular and intramolecular (3+2) cycloaddition reactions, and (3) to examine Diels-Alder reactions and Claisen rearrangements in 3-5M lithium perchlorate in ether. Many of the studies projected will be of a fundamental nature in order to define the scope and limitations of these potentially useful new reactions. Applications to natural products synthesis will be conducted.